Writing Workshop for the Development of Educational Materials for National Science & Technology Week

Carnegie Institution will conduct a writer's conference for the development of educational materials to be used for National Science & Technology Week (NSTW) 199l packets.